SBIR Phase I: Using big data, AI, and machine learning in gender equality and social inclusion analysis

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to enable economic development aid organizations to plan, implement, measure, and achieve better gender equality and social inclusion outcomes. Gender equality is recognized as an important factor in catalyzing development and lifting communities out of poverty. Empowered women contribute to healthy and productive families, communities, and nations. An important step in doing this is to integrate high quality and timely gender analysis (examination of how differences in gender roles, activities, needs, and opportunities affect men, women, girls and boys in specific contexts), into decision-making and project planning. For both public and private sectors, early, action-oriented gender analysis is vital to tackle improve outcomes. In 2015 - 2016, OECD aid agencies spent, on average, $41.7 billion per year targeting gender equality and women's empowerment. Conservatively estimating that 3-5% of this expenditure is for gender analysis and action planning, that makes a market of $1.3-2.1 billion in the development sector alone. This project can potentially improve outcomes from that development funding.

This Small Business Innovation Research (SBIR) Phase I project is to develop and test a web-based application that automates the currently manual process of conducting gender analyses. This addresses a real world challenge faced by aid organizations to effectively integrate gender analyses into planning to inform effective and timely decision-making. Despite being a requirement by many organizations, there are procurement and contract delays, shortage of gender experts, and manual research and data collection. This project will develop a machine learning model that leverages big data, APIs, and text-mining, driven by an analytic framework created by experts, to automate this process and deliver customized results instantly for a fraction of the cost. Phase I will build, train, and test the model for one sector and select countries. By the end of Phase I, the model will be tested and iterated to meet high quality control standards. Once validated, it will be ready to scale globally across sectors.